Research Experiences for Undergraduates at University of Washington

Dr. Darrell J. Woodman and other members of the Chemistry Department of University of Washington are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover all areas of chemistry- analytical, inorganic, organic, organometallic, bioorganic, biophysical, environmental, nuclear and chemical physics. A unique feature of this program is that at least half of the participants will be chosen from smaller schools in the region to work under the joint supervision of department faculty together with faculty mentors from their home institution. In addition special emphasis will be given women, minorities and the physically disabled.